Characterization of a New Motility in Eukaryotic Flagella Unrelated to Flagellar Beating

9317133 Rosenbaum A new motility system in the flagella of the alga Chlamydomonas has been discovered. This motility, termed IFT (intraflagellar transport) can be observed by DIC optics as the bi-directional translocation of granule-like particles beneath the flagellar membrane. Electron microscopy shows raft-like arrays of ball-and-stick-like structures between the flagellar membrane and microtubular axoneme that appear to connect the membrane to the flagellar outer doublet microtubules. There are sufficient numbers of these arrays to suggest that they are the structures observed moving with DIC optics. Epitopes for actin, myosin- I, cytoplasmic dynein, and kinesin-related proteins have been found in the isolated flagella, and a gene encoding a flagellar kinesin-like protein has been cloned. IFT looks very much like neuronal axoplasmic transport, but there are no vesicles in the flagellum. Since axoneme assembly occurs at the tip of the flagellum, IFT may be involved in the translocation of proteins or protein complexes to the assembly site, and also in the maintenance of the flagellum. The nature of the motors responsible for IFT will be determined, with emphasis on the possibility that cytoplasmic dynein may be involved. An in vitro IFT system in permeabilized flagella will be developed. in order to better characterize the newly described transport, and in order to provide a rapid assay for movement. This assay will be used to test the nucleotide specificity of the motility as well as the effects of specific inhibitors, which may help identify the motors. %%% It is not often that a new type of motile subcellular behavior is described, and particularly not often in a cell type as well studied as Chlamydomonas. Chlamydomonas is a free-living, photosynthetic, motile, single-celled eukaryotic alga, which has been valuable as a model system for studying a variety of important cellular properties and functions, including motility. The best-studied mo tility mode in this organism is its ability to swim by flagellar beating, and studies on Chlamydomonas flagellar organization and beating have often led to pioneering advances in the field with direct applicability to understanding the mechanism of beating in flagella and cilia of other cell types, including sperm and respiratory epithelia. The organism is also capable of gliding, on the membranes of its flagella, although this form of motility is not as well studied as flagellar beating. Now, a new type of motility has been discovered in the flagellum, which appears to consist of the transport of particles up and down the length of the flagellum in the region just beneath the flagellar membrane (between the flagellar axoneme and the membrane). It is possible that this motility is similar to the movement of particles along microtubular arrays in the axons of nerve cells. It is likely that other flagella and cilia also possess this type of motility, and that the movement is essential for normal flagellar function and/or maintenance. The studies to be performed in this research project will, first, establish a convenient in vitro assay for this motility, and second, begin to use this assay to identify the functional components of the system and determine the mechanism. Although the long-term practical applications of this knowledge cannot really be predicted at this stage, some possibilities may include issues of male fertility, respiratory function, and nerve function, growth, and regeneration. ***